Dynamically Reconfigurable Acoustic Manufacturing of Volumetric Tissues with Single-Cell Resolution

This award supports the development of a new manufacturing technology for building three-dimensional (3D) tissue structures with precise control over the locations of individual cells. Three-dimensional tissues are increasingly important for regenerative medicine, disease modeling, drug development, and fundamental biological research. However, current bioprinting technologies primarily deposit materials containing large populations of cells, resulting in limited control over the location of each cell and making it difficult to reproduce the highly organized cellular structures found in natural tissues. This project addresses this fundamental limitation by developing a programmable platform that can manipulate and assemble large numbers of individual cells in parallel and use them as building blocks for constructing 3D tissue structures. The resulting technology will advance the fundamental science and engineering of cellular manufacturing and provide new capabilities for studying and constructing complex biological systems. These advances have the potential to contribute to the national health and welfare by enabling future technologies for tissue engineering, disease models, and drug development. The project will also provide interdisciplinary research and educational opportunities for graduate and undergraduate students in acoustics, optics, microfabrication, manufacturing, and bioengineering. Research findings will be disseminated through publications, conference presentations, and integration into engineering education.

The research will develop an Optoelectronic Acoustic Tweezers (OEAT) platform for massively parallel, dynamically reconfigurable manipulation of individual cells. The platform integrates compliant-membrane acoustic patterning with optoelectronic control to create and independently control large arrays of acoustic traps. The research will investigate the fundamental mechanisms governing acoustic trapping, transport, and release of individual cells; develop methods for dynamically generating and reconfiguring more than 100,000 trapping sites; and establish system-level approaches for high-throughput cell positioning and assembly. The OEAT platform will be integrated with a layer-by-layer manufacturing process in which selected cells are spatially arranged within a hydrogel layer, immobilized by photocuring, and sequentially assembled to form volumetric structures. The project will investigate the engineering principles governing the integration of single-cell manipulation, hydrogel processing, layer registration, and repeated cell assembly. Proof-of-concept experiments will demonstrate the feasibility of constructing multilayer 3D tissue matrices with controlled cellular organization. The research will focus on establishing the fundamental engineering principles and technological capabilities required for programmable 3D cellular manufacturing. The project is expected to establish a new manufacturing paradigm in which individual cells can be directly manipulated, positioned, and assembled as fundamental building blocks for constructing complex three-dimensional biological structures.